Electromagnetic Workshop in India - October 2004

0438431
Jiracek

This project provides funding for the 17th workshop on Electromagnetic Induction in the Earth in India in October 2004. This workshop is sponsored every two years by the International Association of Geomagnetism and Aeronomy (IAGA) and the International Union of Geodesy and Geophysics (IUGG) and is the primary forum for earth scientists in the world to share their EM research and plan international cooperative experiments. Besides the week-long core EM workshop in Hyderabad, there will also be a pre-workshop in Mumbai, India on Magnetotelluric Data Interpretation and a post-workshop in Hyderabad focusing on multi-disciplinary studies of the Himalaya.